Theoretical and Experimental Research on the Aurora Borealis

The transport of energetic particles in the Earth's atmosphere and inner magnetosphere is investigated theoretically and some resulting auroral spectroscopic emissions are observed experimentally. Specifically, a generalized transport equation is adapted for application to electron transport, without and with an acceleration term, to proton/hydrogen atom beam, and to hot atoms produced by auroral collisional interactions. Global spectral images are analyzed to yield geophysical parameters for TIEGCM (thermosphere ionosphere electrodynamic general circulation model) investigations and the resulting global history is used in a detailed 1-D auroral model. Suites of auroral spectral emissions features are used to investigate particle fluxes: species, flux magnitude and characteristic energy, as well as changes in atmospheric composition.